Acquisition of an NMR Spectrometer for Undergraduate and Graduate Research

The high field NMR Spectrometer is the single most important tool available to organic and inorganic chemists for structure determination, and it is becoming a significantly useful technique for analytical chemists and biochemists. This award from the Chemistry Shared Instrumentation Program will help the Department of Chemistry at University of the Pacific acquire a high field NMR Spectrometer. The NMR Spectrometer will be used in the following research topics: 1. NMR Studies of DNA-Polyamine and DNA-Histone Interactions 2. Synthesis and Characterization of Macrocyclic Multinuclear Systems 3. Reactions of Phosphoranyl Radicals with Unsaturated Disulfides 4. Synthetic and Conformational studies of Nitrogen Containing Carbohydrates 5. Synthesis of Inhibitors of Enzymes with Acetylated and Deacetylated Polyamines